CISE Research Instrumentation: Cluster Computing for Knowledge Discovery in Diverse Data Sets

EIA-9986042
George Karypis
University of Minnesota

CISE Research Instrumentation: Cluster Computing for Knowledge Discovery in Diverse Data Sets

The Department of Computer Science & Engineering at the University of Minnesota will purchase the following equipment which will be dedicated to support research in computer and information science and engineering. The requested instrumentation consists of 10 dual processor Dell 410 workstations with a total of 10GB of main memory, a CISCO Catalyst 4000 Gigabit switch, and a Hitachi 5750 E RAID system with a total of 360GB storage. This equipment will be used to form a computer cluster suited for data-and compute-intensive applications.

The equipment will be primarily used by four research projects which address research problems in the area of knowledge discovery, including in particular: data mining of genomic and scientific data sets, spatial data mining, next-generation recommender systems, and bid evaluation in multi-agent contracting. For several of these projects, the currently available equipment are either inadequate or obsolete for supporting their core needs. For other projects, the availability of this equipment will make a significant increment to their capabilities. The collective needs of these projects are for a tightly-coupled, high-performance, large-memory cluster of computers with a high-performance high-capacity storage server attached to it.